Biological Science: A Human Approach

Human biology is the basis for a tenth grade, activity-based biology course. The major goals of the course are to understand those characteristics which are unique to the human species and which are shared with other living systems, to understand the place of humans in the biosphere and the consequences of our interactions with the environment, and to understand the place of humans in evolution and the consequences of our interactions with other species and the environment on the evolutionary process. The course is informed by science reform movements and stresses understanding concepts and processes over vocabulary. The content will emphasize major biological themes as identified in curriculum frameworks: evolution, genetic continuity, patterns of organizations, bioenergetics, regulation, behavior, development, forms and function, biodiversity, and ecology. The course, designed for all students and schools, is organized about topics which concern students: the human species, the human organism, human physical performance, human life cycle, human population, and human adaption. It incorporates laboratory activities, and instructional technologies and employs modified learning cycle and modern assessment strategies. Materials include a student textbook, a student resource book, teacher's guide, an assessment package and an implementation guide.